Asymmetric Synthesis by Palladium (II) Catalysis

This research examines the asymmetric functionalization of alkenes and ketones by square-planar palladium(II) catalysts containing mono- and bi-dentate chiral ligands. Yield and enantioselectivity of the catalyzed oxidation of monosubstituted olefins, oxidation of acyclic and cyclic ketones and the halogenation of olefins will be determined as functions of catalyst composition and reaction parameters, principally hydrogen ion concentration. New synthetic methodologies based on the palladium(II) catalyzed asymmetric functionalization of different alkenes will be developed and optimized.

With this award, the Organic and Macromolecular Chemistry Program supports the research and educational activities of Dr. Patrick Henry of the Chemistry Department of Loyola University of Chicago. Professor Henry's research will focus on elucidating the mechanism by which palladium(II) complexes catalyze the asymmetric oxidation and halogenation of different alkenes. New synthetic methodologies, in some cases, capable of one-step syntheses of asymmetrically functionalized alkenes will be tested and optimized. Professor Henry's educational activities involve the training of postdoctoral students.